The History of Productivity and Relative Nutrient Utillization in the Subarctic Pacific Ocean During the Last Six Ma

This project will analyze 15N in bulk sediments and diatom frustules from ODP cores in the North Pacific spanning the last 6 million years. The data will test the hypothesis that establishment of a strong halocline in the middle Pliocene resulted in a drastic reduction of Productivity across the subarctic North Pacific gyre. Reduced primary production over this large an area may have contributed to a global reduction in atmospheric CO2, which in turn may have been a contributory cause of the intensification of northern hemisphere glaciation.